Research Experiences for Undergraduates (Site) in Archaeology

This award provides funds to continue a Research Experiences for Undergraduate Site in Archaeology through Kenyon College. The Site is designed to provide eight highly motivated undergraduates with the opportunity to develop their skills as archaeological field scientists while working within the context of the Naco Valley Archaeological Project, NW Honduras. The project focuses on student conduct of a significant independent investigation, from enunciation of hypothesis to final write-up, supported by in-field class instruction and a living and working situation between students and research leaders on independent research projects. This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences.